Remote-Sterilizing Coatings Using Magnetic Nanoparticles

1133297
Nuxoll

Bacterial biofilms on implanted medical devices afflict hundreds of thousands of Americans each year and cause billions of dollars in increased medical costs. These infections are extremely difficult to kill, prompting substantial research efforts on coatings which would either prevent bacterial adhesion or chemically hinder the bacteria. These approaches have yet to translate to devices with lower infection rates, however.

Intellectual Merit:

The long term goal of this research program is the elimination of infection as a major liability of implanted medical devices. The central hypothesis is that these biofilm infections can be thermally sterilized by heating the device coating upon which they are growing. By immobilizing magnetic nanoparticles in the coating, precisely localized heat can be wirelessly delivered directly to the coating, sterilizing the biofilm growing on it. The objective for this particular proposal is to estimate the temperature profile of adjacent tissue during this heating and demonstrate biofilm deactivation under these conditions. The rationale for the proposed research is that an understanding of how to minimize thermal tissue damage while sterilizing the coating under a variety of heat sink conditions will translate into an inexpensive, versatile medical implant coating which can be non-invasively sterilized on command.

To achieve this objective, this project will: 1) Estimate the temperature profile of surrounding tissue from given thermal protocols. Coatings will be held at a several temperatures for several durations while transient temperature profiles are recorded. Three extreme scenarios will be modeled: immobile tissue,
aortic blood flow, and adjacent immobile tissue/large convective blood flow. Transient temperature profiles from these scenarios will inform a computational model. 2) Demonstrate equivalent heating using remotely-activated magnetic nanoparticles. Each temperature/time protocol first achieved in each of the three scenarios in Objective 1 with wired electrical resistors will be achieved using wireless magnetic-nanoparticle-laden coatings. Film thickness, magnetic particle content, and field strength will be altered to match the protocols. 3) Determine degree of biofilm deactivation from each temperature/time protocol. Pseudomonas aeruginosa biofilms will be cultured, subjected to each temperature/time protocols in each heat sink scenario, and characterized for degree of deactivation. This project represents the first systematic attempt to eliminate biofilms via heat and the first adaptation of magnetic hypertherapy for device-based applications, where the bottleneck of targeted particle delivery does not exist. It provides the basis for a new non-invasive, localized approach to biofilm infection control.

Broader Impact: This project lays the foundation for a new way of dealing with medical implant infections. One day, rather than require a second surgery to remove the implanted device, followed by weeks of hospitalization and a third surgery to implant a replacement, the doctor may simply hold a metal coil up to the patients skin near the device for several minutes and send the patient home. One of the first steps toward making this vision a reality is understanding how the temperature and exposure time needed to sterilize the infection will affect the surrounding tissue. Alternative heating approaches can be pursued for magnetically susceptible devices, but regardless of the heating approach, the in situ power requirements and the potential adjacent tissue damage will be the same. This project experimentally estimates those items for multiple physiological scenarios and develops a model for predicting them in other scenarios. The approach can be generalized to most implant types without major redesign of the implant, also facilitating its path to bedside relevance and broadening the scope of its potential impact. The impact of the research goes beyond the health-care industry and related research disciplines.

The strong integration of engineering and the life-sciences,coupled with the works amenability to smaller subprojects, makes the proposed work a particularly valuable educational tool for both graduate and undergraduate researchers. This accessibility will be capitalized for UI's McNair/SROP program, through which minority, first generation, and low-income undergraduates participate in 8-week, full-time research projects culminating in an intercollegiate research conference and, in most cases, eventual successful application to graduate school. The proposed research will be incorporated with McNair/SROP to increase the pipeline of underrepresented populations in the research community.